Studies in Linear Programming

This proposal concerns linear programming in a broad sense. The long- term objectives of this proposal are a better understanding of the computational characteristics of existing linear programming methodology, improvement of the methodology, and extension of its applicability. The proposal has several immediate objectives: further development of work on the abstract foundations of linear programming and linear programming duality theory; the study of specially structured classes of linear programming problems, including the development and analysis of efficient algorithms for their solution; the exploitation of linear programming methodology in the solution, or approximate solution, of large instances of hard combinatorial optimization problems.